Molecular Analysis of Photoregulated Development

The objective of this proposal is to develop a detailed understanding of the mechanisms involved in photoregulated developmental gene expression in A. nidulans. One aim of this work is to identify and characterize light-specific genes. The wild-type function of the velvet gene is required for photoregulated development, but mutation of this gene does not interfere with the formation of differentiated structures. This gene has been cloned by mutant complementation and experiments are proposed to characterize its expression and to determine its pattern of transcription in the wild-type and in specific developmental mutants. A functional analysis of the velvet gene through the use of gene fusions will be initiated. Additional light-specific genes have been identified by mutation and will be analyzed by light-dark shifting experiments. Methods are also proposed to isolate novel loci involved in the photoresponse. Another aim of this project is to identify conidiation-specific genes that require light for their expression and to deduce possible cis-acting regulatory sequences that control the transcription of these genes. The study of Photoregulated conidiation in Aspergillus nidulans will help elucidate the complex regulatory mechanisms that affect cellular differentiation in eukaryotes, using an organism that is highly amenable to detailed genetic and molecular analyses. Light is critically required for the normal growth and development of most plants. Plants possess mechanisms for sensing and responding to light, and some of these responses involve the activation of specific genes. Relatively little is known about the mechanisms of these responses, largely because it is only recently that molecular genetic analysis has been applied to these responses in plants. The author of this proposal has, during a period of previous NSF support, made the unexpected discovery that light is critically required for the completion of the developmental cycle of the mold Aspergillus nidulans, and that the mechanism of the mold's response to light appears similar to that of higher plants. He here proposes a detailed molecular genetic analysis of this response. The ease of genetic manipulation of the mold promises rapid and important new insights into the mechanism of light responses.